Solubility of Chlorite Solid Solutions at Elevated Temperatures and Pressures: Implications for Hydrothermal Alteration Processes at Mid-Ocean Ridges

Objective of this project is to assess the solubility and relative stability of chlorite solid solutions at temperature and pressure appropriate to model accurately the alteration processes in subseafloor hydrothermal systems. Experiments will be done at temperature and pressure conditions near the supercritical region for seawater. Fluids will be withdrawn at various stages in the experiments and analyzed for several dissolved components. The solids and alteration products will be analyzed using various techniques including mossbauer spectroscopy. %%% In order to understand alteration processes in hydrothermal systems, careful laboratory experiments of critical chemical reactions must be done at temperature and pressure conditions that reflect the natural environment. Dr. Seyfried has developed sophisticated laboratory techniques for doing these analyses, including a means for withdrawing small amounts of fluid for analysis while the experiment is progressing.